Stochastic Variational Problems: Optimization and Equilibrium

0205699
Wets

This research proposal is centered around approximation issues in
stochastic programming, in particular as they arise in two quite
challenging problems: equilibria problems in a stochastic environment and
recourse problems involving partial differential equations. The
"stochastic" equilibrium problem adds a new level of difficulty; rather
than just optimizing one must find a mechanism to determine a price
system under which the optimization takes place. Such equilibria have
been derived by relying on fixed point theorems. Thirdly, because it is
only possible to solve discretized versions of stochastic optimization
problems, it is of paramount importance to investigate thoroughly
approximation issues. Not only the question of approximating the
stochastic process that describes the uncertainty but also how to improve
the construction of this process from the available data and to analyze the
effect this will have on the solution of the stochastic program.

The field of stochastic programming provides mathematical tools for
solving and analyzing models for decision making under uncertainty. This
project will be concerned with two significant and difficult applications
and with approximation issues:
-- A problem in groundwater remediation which was selected because it
requires both theoretical and computational developments. It is a
stochastic optimization problem where the state of the system is obtained
by solving a partial differential equation whose coefficients are rapidly
oscillating (heterogeneous media) and stochastic (uncertainty about the
media composition). The possibility of deriving a homogenized version of
this problem will also be investigated.
-- Walras equilibrium problem in an uncertain environment. This problem
is selected because it adds a dimension to stochastic optimization in that
one must also find price systems (setting up an "equilibrium") under
which this stochastic optimization must take place.
-- Approximation issues in stochastic programming. The question of
having a reliable estimate for the parameters of a dynamic stochastic
programming problem is raised. It is expected that a more comprehensive,
approach which makes use of all the information available, rather than just
the collected data will result in more reliable solutions for stochastic
programming problems.